Regulation and Assembly of Pyruvate Dehydrogenase Complexes

A major point of interaction among photosynthesis, photorespiration and
mitochondrial respiration is the reaction catalyzed by the mitochondrial
pyruvate dehydrogenase complex (mtPDC). This multi-enzyme complex is the
primary entry point for carbon into the Krebs cycle for energy production
and the generation of biosynthetic intermediates. The plastid isoform of
PDC provides the precursor for fatty acid biosynthesis, branched-chain amino
acids, some isoprenoids and growth regulators. The mtPDC is regulated in
part by reversible phosphorylation of multiple serine residues catalyzed by
a novel and specific histidine-like protein kinase (PDK). Objectives: To
establish the phosphorylation sites on the E1 subunits of plant PDC; to
characterize recombinant PDKs with regard to effectors and kinetics; to
establish the expression of PDK isoforms as function of plant development
and environmental influences; to establish amino acids essential for
catalysis and binding in the PDK primary sequence; to establish the
physiological role of PDKs using transgenic plants over- and underexpressing
PDK and by identifying "gene knockouts" of PDK in maize and Arabidopsis
thaliana; to characterize events, mechanisms and modulators of PDC activity
during development and photosynthesis in C4 and C3 plants; to investigate in
vitro assembly of PDC component enzymes and their import and assembly.
Experimental approach: 1) 32P-labeled E1 subunit will be purified from
the complexes exhibiting various states of activity and the phosphorylated
serines identified. 2) Effectors and kinetics of recombinant PDK will be
determined. 3) Specific hybridization probes and antibodies for PDK
isoforms will be used to measure developmental and spatial expression, and
responses to environmental and nutritional cues.
4) Standard site-directed mutagenesis methods will be
used to systematically change specific amino acid residues of PDK, and
activities will be assayed using kinase-depleted PDC. 5) A. thaliana will
be transformed; down regulation of PDK and PDH will be accomplished using
T-DNA tagged genomic DNA pools. 6) In vitro assembly studies will utilize
subunits of component enzymes in conjunction with various chaperone systems;
import and assembly will utilize purified pea mitochondria and subunit
precursors. 7) Conditions and metabolites that affect reversible
phosphorylation of mtPDC will be determined using purified functional
mitochondria, protoplasts or whole tissues. Significance: The results
obtained will help clarify control of interactions among multiple distinct
catabolic and anabolic pathways. The mechanisms and structural requirements
of a unique class of protein kinases will be determined. Factors that
affect expression of PDK and of the PDC subunits will be identified.
Details of the synthesis, organellar import, and assembly of the components
of PDC will be resolved. Finally, mechanisms for controlling the activities
of plastid and mtPDC will be ascertained. Plastid PDC is likely to be
essential for fatty acid biosynthesis, and unique regulatory properties are
required in this subcellular compartment.